Conference: Gateways 2026

Science gateways are used by hundreds of thousands of researchers and students, supporting both publication-quality science and at-scale education. Science gateways involve research domains such as biomedical research, energy security, responsible AI development, and supply chain resilience. Gateways 2026 is the major event for the science gateway community in the US to discuss challenges and solutions, to identify new issues, to shape future directions for research, to foster exchange of ideas, standards and common requirements, and to support wider adoption of science gateways. This award plays a crucial role for students and early-career researchers by facilitating their access to expert knowledge and mentorship through conference sessions and networking opportunities.

Gateways 2026 features various program formats such as keynotes, presentations, tutorials, demos, panels, posters, and Bring Your Own Portal. Virtual tutorials will be offered free of charge during the weeks preceding the conference, expanding access to training and community engagement. Accepted papers will be published in ACM conference proceedings for the first time, while other accepted contributions will be published in open-access proceedings. Authors of accepted papers will also be invited to submit extended versions to a special journal issue. This grant allows more students and early-career researchers to participate at Gateways 2026 and gives them access to expert knowledge and mentorship through conference sessions and networking opportunities. The topics covered by the Gateways conference series range from technical topics to use cases to related content such as usability or sustainability of science gateways. The building blocks of science gateway frameworks are re-usable in a broad range of research areas, as evident in widely used frameworks such as Hubzero and Tapis. The conference theme, "Gateways in the Age of AI," highlights the opportunities and challenges of integrating artificial intelligence into science gateways, research workflows, education, and community practices. The Gateways conference series sets the stage for learning, engaging and empowering the different stakeholders in the community who are science gateway users, developers, and providers as well as funders and decision makers.